Investigating the Nature of Dark Matter throughout Cosmic History

One of the most prominent and exciting challenges in fundamental physics is understanding the nature of dark matter, which accounts for 85% of all matter throughout the known Universe. Dark matter plays a crucial role in forming galaxies, galaxy clusters, and larger structures of matter through its gravitational effects on ordinary particles. A key question is whether or not dark matter experiences any forces beyond gravity. Dedicated experimental efforts to search for new dark matter physics have thus far produced null results, prompting the development of new theoretical ideas and detection techniques. The PI's research program will tackle the dark matter problem at the intersection of cosmology and particle physics, using cosmological and astrophysical observations to study the microscopic properties of dark matter. Such observations have emerged as a powerful probe of dark matter, due to their increase in precision and sensitivity over recent years. The PI's research will provide foundational work for future dark matter analyses, in preparation for potential new discoveries as next-generation instruments and surveys begin operations in the upcoming decade. In conjunction with research, this program incorporates the mentoring and training of students and postdocs, who are poised become the future scientific leaders of the field.

This research will study the impact of dark matter interactions with ordinary particles throughout cosmic time. These interactions affect the formation of, for example, the cosmic microwave background and small-scale structure, enabling the opportunity to search for new dark matter physics using cosmological and astrophysical observations. This research will pursue new avenues to bridge theoretical models and observational techniques to study dark matter. It will involve the development of sophisticated tools to perform joint analyses using multiple datasets.